A Spectroscopic Upgrade for the MDM/Ohio State/Aladdin Infrared Camera (MOSAIC)

Abstract POGGE, R. W.. AST-9605012 Funds will be used to upgrade the MDM/Ohio State/ALADDIN (MOSAIC) Infrared Camera and imaging spectrometer to full coverage of the J, H, and K' spectral bands. At present MOSAIC covers only the J and K bands. The instrument will be used on telescopes at Kitt Peak including the 4 meter and 2.1 meter KPNO telescopes and the 2.4 meter Hiltner telescope.